Symbolic Approaches to Analysis and Hybrid Systems

Abstract:

Hybrid systems consist of discrete time systems interacting with
continuous time systems. Most frequently they arise when a discrete
computational device functions in a continuous physical environment.
Such systems have become very common, thanks to the proliferation of
software in controlling physical systems. Modeling and analysis of
hybrid systems is, therefore, paramount for efficient development of
high quality safe devices. Formal models of hybrid systems have been developed by combining discrete
state transition formalisms with continuous dynamical systems. Developing
analysis technology for such expressive formalisms is a challenging task.
In recent years, several analysis tools have been developed for
specialized classes of hybrid models that either restrict the continuous
behavior or the discrete behavior severely. The continuous component of a
hybrid system, in particular, presents a great challenge to the
development of sound analysis techniques.

This project aims to develop sound and effective techniques and tools for
analysis of large hybrid system models. The approach centers around the
construction of approximate abstractions for hybrid systems using
intelligent abstraction mappings that yield effective computability and
scalability. The project builds on the hybrid abstraction technique that combines
predicate abstraction for discrete systems with qualitative abstraction of
continuous dynamical systems. It focuses on (i) improving techniques to generate
the most appropriate abstraction mappings by structurally analyzing the
continuous dynamics; (ii) the exploitation of the modular structure of the
discrete and continuous components, and the compositional structure of the
hybrid system; and (iii) developing the necessary symbolic methods for
effective automation.

The tools and techniques developed under this project will have broader impacts by making analysis
amenable to intermediate and large hybrid system models in application areas such as embedded system
design for automotive and other applications and bioinformatics. It also
helps students develop intuitions about complex system behaviors without
analytically solving them. The results are disseminated through research
publications and the tools are made available for academic use.